Structure and Active Tectonics of the Tadjik Depression and Pamir

The Tadjik Depression and the Pamir are tectonic features in Soviet central Asia related to the northward penetration of the Pamir into the rest of Eurasia, in front of India and at a rate of 20 to 30 mm/years. This is causing a westward extrusion of material that, in turn, leads to east-west crustal shortening in the Tadjik depression, accompanied by active seismicity and tilting. This project allows international collaboration between U.S. Burtman, a Soviet Union expert on the geology of central Asia, and this principal investigator for the purpose of synthesizing the evidence for recent (late Cenozoic) deformation and identifying the mechanics of how convergence in one area is transferred to another area in these tectonic settings. This project is of considerable benefit to both the Soviet Union and the United States, and is being jointly supported by the Earth Sciences Division and INT.